Renovation of the Facilities for Scientific Computing and Visualization at the Courant Institute

This is a proposal to modernize the computer network and the display terminals used by researchers of the Courant Institute in order to support research using high-performance computers and to support high-performance visualization methods in computer and information science and engineering research.